Collaborative Proposal: Unravelling the Oceanic Dimethylmercury Cycle

Collaborative Proposal: Unravelling the Oceanic Dimethylmercury Cycle

This project will study how dimethylmercury is formed and removed in the oceans. Dimethylmercury is a naturally occurring compound. It is thought to be formed when man-made mercury is converted into monomethylmercury, a toxin that accumulates in fish. Despite representing a large fraction of mercury in the oceans, the origin and fate of dimethylmercury is not known. This research will use state-of-the-art analytical, genomic and modeling tools to address this information gap. It will also train graduate and undergraduate students to use field, experimental, and modeling methods. The results will be used in predictive models to forecast future trends in the oceanic mercury cycle. These models are needed to evaluate the effectiveness of international actions that seek to reverse increasing trends in the bioaccumulation of monomethylmercury in fish.

Methylated mercury species in the ocean are formed in sediment and the water column from inorganic divalent mercury delivered from the atmosphere and rivers. The putative mechanism is a two-step process during which monomethylmercury is formed first, followed by slow methylation into dimethylmercury. The first step, biomethylation of divalent mercury into monomethylmercury, is relatively well-studied in sediment and known to be driven by sulfate- and iron-reducing bacteria and methanogens. The mechanism for monomethylmercury formation in the water column is less well understood, and the process of dimethylmercury formation in sediment or seawater is essentially unknown. Until recently, it was assumed that dimethylmercury represented a small enough fraction of the methylated and total mercury (the sum of all mercury species) pools to be insignificant in the global mercury cycle. Recent measurements, however, show that dimethylmercury levels in seawater can be in the same range as the other mercury species. This project will identify the biological and chemical methylating agents involved in the formation of dimethylmercury. Further, it will test the impact of varying biogeochemical conditions on dimethylmercury production. Results will be used to update the mercury module of the MIT General Circulation Model (MITgcm, a global biogeochemical model, and analyze the impacts of dimethylmercury production and degradation on monomethylmercury concentrations.